Integrating Mathematica into a Reformed Calculus Curriculum

The project is establishing a calculus computing laboratory of 30 microcomputers using the software package Mathematica. This laboratory is being integrated into the curriculum by replacing portions of traditional calculus courses with modules written in the form of Mathematica notebooks. Mathematica notebooks are electronic text in which all calculations and graphics are alive and may be modified and re-executed. At least one class per week is being held in the calculus laboratory where students use Mathematica as a central tool in learning calculus. The curriculum is being modified to reflect the new approaches to calculus as a result of the graphics, computer algebra, and programming capabilities of Mathematica. This project creates a new generation of calculus labs where the emphasis is moved from working traditional homework problems and small projects to the understanding of calculus itself. The result is classes that attract and hold students' attention by exciting students and allowing them to explore Mathematics in ways not previously possible.